Regeneration of Peripheral Axons in Controlled Polymeric Environments

The aim of this project is to describe the mechanism of regeneration of a cut peripheral nerve bundle across the transected region. The approach is to design a family of highly porous, resorbable implants based on collagen-glycosaminoglycan polymers and to insert them between the cut ends of transected sciatic nerve in the rat. Regrowth will take place through a silicone rubber tube which is sutured to the perineurial tissue. The adhesive preferences of regenerating peripheral axons will be studied along with the long term recovery of motor function.